SGER-ISE-PUR: Internet-based Informal Science Education to Increase Public Understanding of Research -- A Small Grant for Exploratory Research (SGER)

The Exploratorium is testing new methods of using Internet-based programming to increase the public understanding of current scientific research. Exploratorium staff, working with a group of advisors, will assess the current status of projects that focus on conveying information about research. They then will develop and test a prototype website. The exploratory research will examine such questions as:

What information about research is important and critical to convey to the public?
How do you build a Web presence that can rapidly accommodate new findings?
What is an appropriate oversight process to assure inclusion of appropriate research?
What are sufficient update intervals?
How does such a Web site build an audience?
How can the Web effort be coordinated with other PUR projects?
How can the Web site provide opportunities for public input and discussion?
How do you develop buy-in and participation from researchers?
Is the additional interpretation/annotation sufficient to give the public a deeper level of understanding?

These planning and prototyping efforts will be coordinated with other simultaneous Public Understanding of Research planning projects.